A Proposal for the Implementation of a Mathematics Activity Resource Center (MARC)

9452028 Helfenstein Recent reports from prestigious study groups strongly suggest modifying the mathematics curriculum to produce students who meet the demands of today's society. Teamwork, technology, creative and critical thinking, and communication skills are crucial to success in today's professional world. To ensure better prepared students, the Mathematics Department at Central Oregon Community College (COCC) implemented major curriculum reforms which foster skills so crucial to success. This comprehensive reform effort involves developing and incorporating various interactive/experiential formats across the curriculum. Central to this reform program is the creation of the Mathematics Activity Resource Center (MARC). Project funds are being used to equip the MARC with computers and other instructional aids. The MARC greatly facilitates activities that encourage teamwork, discovery, learning-by exploration, open-ended group projects, and technical writing. The MARC enhances the learning environment for all math students at COCC by providing a setting physically separate from the traditional classroom. In addition, the MARC serves as a district-wide resource for strengthening mathematics education at all levels. The key components COCC is addressing in its mathematics reform project include: development of a cooperative learning environment; integration of hands-on activities to promote skills and concepts; implementation of interactive/experiential activities; introduction of modern technologies and innovative educational methodologies; involvement of faculty department-wide; incorporation of realistic and open-ended problems; and, promotion of technical writing skills.